SBIR Shallow Water Acoustic Doppler Current Profiler Development

9361151 CABRERA This proposal requests Phase I funding to demonstrate the feasibility of developing a low-cost acoustic Doppler current profiler (ADCP) suitable for shallow water applications, up to 50-m depth. In addition to lower instrument cost, the new system will provide a number of significant advantages over existing ADCPs such as: ability to measure closer to the surface, more rugged transducers, lower power consumption, smaller size, and a much simpler operation and deployment. In Phase I we will investigate the use of state-of-art electronics and application specific hardware to minimize cost, size and power consumption. New transducer design and transmit/receive schemes will be evaluated for reducing sidelobe interference thus permitting velocity measurements closer to the surface than what is common with commercially available systems. New materials will be evaluated for the construction of transducers and pressure vessel to improve the ruggedness of the instrument in areas of high biological activity. The system will be designed such that it can function autonomously with internal batteries and data recorder, or as a module that can be easily integrated into a larger instrumentation package.